CAREER: Electrode-Macromolecule Interactions Influence the Selectivity of Electrolytic Polymer Transformation, Deconstruction, and Depolymerization

Plastics consist of long molecular chains called polymers. Modifying or breaking down polymer chains in a targeted way is often difficult. With the support of the Macromolecular, Supramolecular and Nanochemistry Program, Professor Austin Evans of the University of Florida will develop new electrochemical methods to alter polymer structure. By using electrical current to alter plastics, this research aims to address plastic waste challenges and create specialty materials that may be useful for adhesives, space-based protective coatings, or electronics barrier layers. This approach provides a new method for precision polymer synthesis, supporting the future of advanced manufacturing by enabling the on-demand creation of reactive intermediates and difficult-to-access materials. The broader impacts of this work focus on bridging the gap between academic research, local industry, and the public in the Southeastern United States. The investigator will help build a skilled technical workforce by partnering undergraduate researchers with industry mentors for hands-on scientific projects. Furthermore, the project includes plans to publish open-access educational modules for national science curricula.

The core technical objective of this CAREER project is to establish the fundamental principles of macromolecular electrolysis, specifically targeting post-polymerization modification, deconstruction, and depolymerization. Using a model system based on the electrochemical reductive decarboxylation of N-hydroxyphthalimide ester-functionalized (meth)acrylates, the investigator will execute three concurrent research thrusts. First, the project will measure how macromolecular diffusion and surface sorption dictate electrolysis kinetics by systematically varying polymer molecular weight, topology, and corona chemistry using controlled radical polymerization. Second, the research will test if surface interactions can destabilize electrochemically generated high-energy intermediates, driving depropagation to recover pure monomer even from chemically challenging substrates. Third, the investigator will explore asymmetric macromolecular electrolysis by employing functionalized carbon electrodes. Confinement on these chiral surfaces aims to bias H-atom addition to prochiral carbon-centered radicals, ultimately yielding tacticity-defined polyolefin copolymers that would be difficult to access by other means. This work aims to deliver the design rules needed for physicochemical reaction control at heterogeneous interfaces with macromolecular substrates.